U.S.-New Zealand Cooperative Research: Computer Modelling of Sensory Filtering in the Elasmobranch Hindbrain

This award supports visits over a three year period by Dr. David Bodznick of Wesleyan University and Dr. Mark Nelson from the University of Illinois to the laboratories of New Zealand colleagues Dr. John Charles Montgomery at the University of Auckland and Dr. Michael Geoffrey Paulin of the University of Otayo. The Dorsal Octavolateral Nucleus (DON) is the structure located in the medulla of elasmobranch fishes which filters electrosensory signals as they enter the brain. In this project advanced signal processing and computer simulation techniques will be used to characterize and analyze the function of the DON in terms of detailed circuity. By combining the skills and resources of the four investigators with diverse backgrounds the study anticipates improving the understanding of the DON and similar brain structures in other vertebrates, and also how mathematical and computer methods can be applied to analyze neural structures. The expertise of Dr. Paulin (mathematician) in computer modelling in neurophysiology and Dr. Nelson (physics) in biophysics and neural information processing will be integrated with the ongoing collaborative studies previously initiated by Drs. Bodznick and Montgomery in electrosensory systems and elasmobranch physiology.